ITR: Evaluating Phylogeny Reconstruction Algorithms with Digital Organisms

EIA-0219229
Torng, Eric K
Michigan State University

ITR: Evaluating Phylogeny Reconstruction Algorithms with Digital Organisms

The investigators study methods of determining the historic relationship
between species using only knowledge of currently existing organisms, a technique called "phylogenetic tree reconstruction". Many tree reconstruction algorithms are known, but it is difficult to properly test them for the very
reason that the algorithms are useful -- the original trees are lost to
history.

The studies proposed make use of a new evaluation methodology based on an
artificial evolving system called Avida. In Avida, populations of digital
organisms (self-replicating computer programs) experience natural selection
as they compete for limited resources, and will evolve into new species
often with entirely new genes. The history of such a system can be
monitored, and hence a reconstruction from the final state can have its
accuracy measured.

The proposed activity has several broader impacts on society. It is a core
activity in the Center for Biological Modeling, a new interdisciplinary
research and education center at Michigan State University. Undergraduate
students including underrepresented minorities will be involved by studying
small, self-contained questions. Finally, enhanced understanding of
phylogeny reconstruction algorithms will improve our ability to interpret
the
sequences of genes, aiding in drug design and helping efforts to reconstruct
an evolutionary "tree of life".